An Adenylate Kinase Inhibitor From Mammalian Serum

The aim of the proposal is to isolate and characterize the inhibitor(s) of tuna skeletal adenylate kinase (AK) found in mammalian normal sera. Sera from cat, goat, guinea pig, and human have been tested and each is able to inhibit tuna skeletal muscle AK. AK from skeletal muscle of terrestial mammals is not inhibited. Isolation of the inhibitor will permit characterization of its interaction with AKs. This information will permit further research on possible endogenous regulators which may suggest approaches to design of AK inhibitors. Future research will involve conformation and binding studies on purified tuna AK and isolated serum inhibitor. The potential role of this inhibitor as an endogenous AK regulator will be assessed.